Flora of China

The Flora of China is a collaborative international project to publish the first modern English-language account of more than 30,000 species of vascular plants of China. It marks a new stage in the promotion of international botanical interchange. All taxonomic treatments are jointly co-authored by Chinese and non-Chinese botanists. Nearly 150 Chinese botanists and 500 non-Chinese botanists are involved in the project. The project will eventually result in publication of 25 volumes of text and illustrations. Family accounts will be made available on the web, and a fully searchable database of species accounts, distribution maps, and other data will enable browsing. This authoritative information will be used worldwide by scientists in basic and applied research, as well as by those working in conservation, land management, horticulture, and medicine.